Comprehensive Shock Tube Studies of Current Combustion Kinetics Problems Over Extreme Ranges of Pressure and Temperature

ABSTRACT
BREZINSKY, KENNETH
CTS-9974308

This is a study of hydrocarbon chemistry related to soot formation. The approach is centered on single-pulse shock-tube studies in a high-pressure shock-tube facility designed to permit extraction of quenched reaction intermediates and products as functions of well-defined pressures, temperatures, and residence times. Extracted samples are analyzed with gas chromatography/mass specteometry (GC/MS). Additional studies are conducted in a low-pressure shock tube where the principal means of reaction diagnosis is the laser schlieren method of rate evaluation. Three systems are studied: (1) benzyne chemistry including in-situ pyrolysis of phthalic anhydride to produce benzyne and its subsequent pyrolysis to examine its role both as a decomposition pathway in aromatics chemistry and as a possible route to larger molecule formation through biphenylene; (2) diacetylene pyrolysis including shock-tube studies of dilute diacetylene/argon and dilute diacetylene/acetylene/argon mixtures to examine the mechanism of soot formation in the presence of diacetylene; and (3) reactions of 1,5-hexadiyne including shock-tube studies of 1,5-heaxdiyne to discriminate among alternate pathways to benzene.